Synthesis and Characterization of Polysaccharide Sorbents

The goal of this project is to synthesize and characterize biomaterials for use in the drying of gases and organic vapors. The biomaterials will be formulated from polymers of glucose (ie., starch and cellulose) and pentoses (ie., xylans and hemicellulose) to give a sorbent which is robust, biodegradable, and compatible with existing fixed bed gas separation processes and hardware.